SGER: Local Probing of Magnetization Switching using Vectorial Susceptibility Experiments

The functioning of modern magnetic devices requires knowing their switching characteristics, i.e. critical curve. The proposed SGER research represents a new approach to locally measure the switching critical curve of coupled nanomagnetic systems. This is a very challenging project because a novel idea for critical curve measurement of coupled magnetic systems will be tested while macroscopic measurement devices will be interfaced with nanosized magnetic objects.
The findings gained from this project will contribute to the basic understanding of the nanoscale physical phenomena, specifically nanomagnetism, providing insights into the dynamic properties of mesoscopic magnetic structures. The immediate benefit for the society comes from the big impact of the proposed activity on magnetic recording technology. Also, the success of this project could have broad impacts on nanotechnology education in the Louisiana by exposing undergraduates students, especially minorities, to the latest research developments.